Coordination Problems and the Design of Institutions

Recent theoretical research has convincingly established that cooperative behavior can be maintained among selfish, rational individuals simply through the processes of repeated interaction and appropriate mutual expectations. That research provides the basis for a theory of social cohesion in groups of all kinds, and provides tools for analyzing conditions under which cooperation, altruism, stability, etc., are likely to continue or to decay. The theory makes no provision for formal mechanisms of communication, coordination or enforcement in groups or organizations. Several fundamental questions remain unanswered concerning the creation and maintenance of social cohesion, however. In particular, the previous research demonstrates that there are generally many patterns of behavior and expectations under which cooperation could be maintained, but these patterns are likely to be incompatible: if one person's expectations conform to one such pattern, and another's expectations conform to another pattern, then they may fail to achieve cooperation at all. For spontaneous cooperation to arise, individuals must have corresponding expectations about the appropriate behavior. To explain how social cohesion gets started, and to understand how it is maintained under changing conditions, requires that we understand how people overcome this problem of coordination. The current research investigation aims to extend the theory of cooperation among rational individuals to explain how problems of coordination can be solved. In particular, the researchers will mathematically model various communication processes, using the same general approach as previous models have taken toward cooperation. They will then evaluate the ability of these processes to promote coordination, taking full account of the existence of uncertainty and private information, and of the mutually recognized opportunity for individuals to manipulate, conceal, or misrepresent through communication. In their most general form, such communication processes amount tosocial institutions - - norms, traditions, constitutions, and leadership institutions, to name just a few examples. The expectation is that rational behavior within these processes can explain the ability (or failure) of social institutions to maintain cooperation or cohesion in all kinds of settings. Once developed, the theory will allow a specification of an experimental design for testing hypotheses about complex cooperation and the design of institutions in the laboratory, and to specify statistical models for the testing of hypotheses about existing social, economic, and political organizaitons. If successful, the theory will have important implications for our understanding of may forms of social organization, including the structure of economic markets and regulation, the design of constitutions, and the structure of political agencies.